First Bouchet International Conference; Trieste, Italy; June 9-11, 1988 (Physics)

This grant is for support for travel by 21 black American physicists to the First Bouchet International Conference in Trieste, Italy. This conference is sponsored by the International Center for Theoretical Physics (ITCP) and the Black American Friends of ITCP. It will be attended by African as well as American physicists. Its purpose is to share research results, discuss current topical issues in physics, address problems of mutual concern, and create a continuing organization. It is funded under the Minority Research Initiation Program of NSF.